Paleontological Society Workshop on Future Directions in Paleontology held on September 10-11, 2005 at the Department of Paleobiology, Smithsonian Institution, Washington, D.C.

Over the past few decades it has become apparent that scientific progress is commonly best
attained where big problems are addressed by teams of scientists representing a wide
variety of expertise. In response to these changes in the nature of scientific inquiry,
the Paleontological Society proposes to organize a workshop accompanied by a series of
research forums that will focus on developing several new large-scale research initiatives
that have the broad support of the paleontological community. The proposed Future Research
Directions in Paleontology (FRDP) Workshop, for which funds are requested, will include 25
participants, and is to be held on September 10-11, 2005 at the Department of
Paleobiology, Smithsonian Institution, Washington, D.C. This will be preceded by a
research forum at the North American Paleontological Convention (June, 2005) in Halifax,
Nova Scotia. The workshop will then be followed by two research forums at the Geological
Society of America Annual Meeting (October, 2005). The final product of this effort will
be a document of 30-40 pages which will contain short proposals for 5-6 larger integrative
projects that require significant funding which the paleontological community shows strong
support for initiating.
What Is The Intellectual Merit of the Proposed Activity?
Those engaged in paleontological research would agree that many challenges towards our
understanding of how life has evolved and existed on Earth would be best approached in a
collaborative, integrative fashion. The FRDP Workshop and associated Research Forums will
provide a community-based platform where several of these most important research problems
can be addressed through development of research projects that will act as initiatives for
the paleontological community. In this way the Paleontological Society plans to lead the
way towards the future of paleontological research.
What Are The Broader Impacts of this Study?
With the growth of science over the past few decades, many of the most important problems
can only be solved with interdisciplinary teams of scientists using the best available
technology. Such team-based activities will provide numerous opportunities for research
training and experience in forefront areas of science, particularly the growing number of
women and other under-represented groups which are currently entering the Earth sciences.